Workshops: Efficient Spectrum Utilization for Wireless Networking and PI Meeting

In the past few years the wireless industry in an endless search for more bandwidth
efficient modulation schemes, spectrum and bandwidth efficiency have become
synonymous due to the limitations of legacy communication systems. These limitations
have traditionally bounded the communication system to a specific frequency band with a
pre-selected modulation scheme that exhibits the best tradeoffs for the relevant
application. Emerging technologies like Software Definable Radios (SDRs), Cognitive
Radios (CRs) along with ultra wideband transmissions, smart antennas and ad hoc
architectures promise unprecedented flexibility of spectrum access.

In unison with these technological innovations, a report from the FCC Spectrum Policy
Task Force challenges for the first time the assumption of sparse spectrum resources, by
suggesting that at any given time and place, less than 10 percent of the available spectrum
is utilized. In order to improve spectrum utilization, the FCC Spectrum Policy Task Force
proposes the concept of dynamic spectrum access (DSA).

Stevens Institute of Technology proposes to support the National Science Foundation in
developing innovative research projects to radically improve spectrum utilization and
spectrum efficiency for wireless networks. This project proposes to help develop these
concepts through (1) a Principal Investigator Meeting involving the leading technologists
and researchers contributing to NSF wireless networking programs and (2) a workshop
focusing on physical and network technologies for enhanced spectrum efficiency.